3D Seismic Imaging of Offshore and Onshore Kilauea Volcano, Hawaii: Analysis of 1998 Active-source Marine Data Recorded by the Permanent HVO-USGS Seismic Network

A marine reflection survey was conducted over the submarine flanks of Kilauea and Moana Loa volcanoes, Hawaii, in 1998. Shot data from this survey were recorded by the permanent on-land seismic array maintained by the Hawaii Volcanoes Observatory. Raypaths for arrivals over the survey region sample a large volume of the volcanic edifice and subjacent ocean crust, with densest coverage at the offshore-onshore transition. These data will be processed and inverted to obtain a 3D tomographic image of the velocity structure of the volcano.